Tidewater Young Scholars Program

9452752 McNeil Norfolk State University seeks to initiate a five-week, commuter, Young Scholars program in mathematics and chemistry for 40 minority students entering grades 8 and 9 in the Tidewater, Virginia area. Students will engage in hands-on laboratory activities, including experiments in water chemistry, and will use graphics calculators and personal calculators to assist in the analysis of water-related data. The project features field trips, career exploration activities, and academic year follow-up activities. The major goal of the project is to increase students' ability and confidence in mathematics and science applications and hereby encourage them to pursue careers in these fields.